Digital Government: Identifying Where Technology Logging and Monitoring for Increased Security Ends and Where Violations of Personal Privacy and Student Records Begins

EIA-9982054
Rezmierski, Virginia
University of Michigan

Digital Government: Identifying Where Technology Logging and Monitoring for Increased Security Ends and Where Violations of Personal Privacy and Student Records Begins

This award will examine issues related to the tension between 1) the progressively complex stages of computer access logging/monitoring resulting from the need for more aggressive security, and 2) conditions under which that logging, storage and possible release of information would constitute a violation of student record privacy. The resulting study and identification of best practices will be provided to law enforcement agencies, data managers, policy experts, and developers of future privacy and security technologies.

The domain of interest is university student records, though the findings should extrapolate to other domains. Collaborators will include the US Department of Education, Educause and the American Association of Collegiate Registrants and Admissions Officers.